Solid State NMR Studies of Structurally Disordered Lithium Battery Cathodes - Collaborative Research with the Rutgers University I/UCRC Program

This collaborative effort is between Hunter College CUNY and Rutgers University under the auspices of the existing Industry/University Cooperative Research Centers program at Rutgers. The research at Hunter College will provide NMR spectroscopic support to the materials research efforts at Rutgers, primarily those involving evaluation of new high capacity amorphous Li ion cathode materials. A comprehensive program of multinuclear solid state NMR will be conducted in collaboration with the Rutgers groups; materials synthesis and characterization performed at Rutgers, and NMR performed at Hunter. One CUNY doctoral student will be supported to work at both locations.